CPS: Small: Zonotopes for Autonomy: Set-based Methods for Verification and Falsification of Autonomous Vehicle Software Stacks

The advent of modern autonomy in settings like self-driving cars, agricultural robotics, and military drones requires multi-modal sensing and situational decision making. This contextual awareness is accomplished through a computational framework called an autonomy stack, which processes multiple types of data (e.g., camera images, radar, lidar point clouds) through multiple different layers to make decisions about what actions to take. Effective algorithms for each layer exist but, because each layer does a different job, the algorithms and ways of representing the information in these layers is highly varied. As a result, there is no general means of combining these algorithms and guaranteeing safety and performance. This project leverages a new versatile mathematical representation to reason about each algorithm in an autonomy stack. By employing the same mathematical “language,” the worst-case behavior of the entire stack can be bounded and analyzed. In this way, the project provides new tools to ensure the safe and verifiable deployment of autonomous systems, providing a more reliable and trustworthy critical infrastructure.

The proposed research will develop set-based methods that enable verification and falsification of autonomous Cyber-Physical Systems (CPS). To achieve autonomy, such CPS have an open-loop stack of cyber modules, for mapping, perception, planning, and control, operating in closed-loop with physical modules, capturing system dynamics, actuation, and sensing. The proposed set-based approach will provide a common representation among modules to achieve the seamless integration of cyber and physical components and a methodology for verification and falsification. The key enabler of the proposed set-based approach is the hybrid zonotope set representation, an efficient way to represent the union of convex polytopes. Hybrid zonotopes can exactly or approximately bound the behavior of autonomy modules and physical system dynamics. By providing a practical balance of expressivity and complexity, the hybrid zonotope is the unifying “language” that enables each module to be represented in a common form. To increase the overall safety of CPS through offline autonomy stack design and analysis, this research will parameterize and bound all possible behaviors of the open-loop stack and closed-loop system operation while capturing the interactions and dependencies between modules. This project will also address the scalability of these methods to ensure practical applicability while balancing computational complexity and verification/falsification accuracy.